Presidential Faculty Fellow Award

9350334 DeSimone The goals of my teaching and research plan are to introduce contemporary concepts of polymer science to our department which builds on nationally recognized, in-house strengths. Research will focus on environmentally benign monomer and polymer synthesis in supercritical carbon dioxide and the synthesis and characterization of high performance thiophene-based polymers. ***